In Vitro Studies on Nucleosome Dissolution and Assembly During Transcription

The aim of this proposal is to understand the mechanisms whereby histones interact with DNA such that RNA and DNA polymerases as well as sequence-specific proteins can access the DNA to complete their nuclear functions. The relevance of these analyses is to the need to understand the processes that regulate programmed differentiation and then subsequently maintain that differentiated state during proliferation of the cells. These processes are distorted during carcinogenesis to produce the malignant phenotype. Procedure for purfication of the individual histones have been developed, including uH2A and uH2B which maintains the structural integrity of the proteins such athat reassembly of heterotypic interactions is very efficient. Procedures have also been developed to measure rapid rates of nculeosome formation and measure the effects of transcription-induced stresses on nucleosome stability. These assays involve measuring superhelical densities of the DNA, its protection from nucleases, and accessibility of the histone to conjugation by 125 Iubiquitin. With combinations of these procedures it will be possible to examine the role of uH2A, uH2B in providing accessibility of nucleosomal DNA sequences to sequence-specific proteins, the role of H2A and H2B exchange in facilitating transcription rates, and the processes involved in the assembly of nucleosomes during replication and transcription.